Advanced Manufacturing Technology Program

This project is developing two new AAS degree programs in Manufacturing Engineering Technology and Plastics and Polymers Manufacturing. These programs are based on the development of new course materials and on the adaptation of curricula and courses from Sinclair Community College and the Pennsylvania College of Technology. The programs serve current manufacturing employees, employees who are newly entering the workforce or seeking a career change, and graduating high school students aspiring to develop essential technical career skills. Course content addresses critical workforce skills that have been identified by regional manufacturers. Articulation partnerships are established with Old Dominion University and Virginia Polytechnic Institute and State University. These partners offer third- and fourth-year-level manufacturing technology courses for program graduates.